Ex Post Facto Diffraction - Limited Imaging Through Atmospheric Turbulence

Abstract MARTIN, C. AST-9618811 The goals of this project are (1) to make possible new ground-based, diffraction-limited imaging spectroscopic observations of major astronomical significance, including imaging spectroscopy of protoplanetary disks and active galactic nuclei, and astrometric imaging of globular cluster cores; (2) to develop a new multi-aperture, wide-field interferometer that will record the field-angle and subaperture-dependent phase information required for diffraction-limited post-processed imaging spectroscopy; (3) achieving a deeper level of understanding of atmospheric turbulence, its optical consequences and correction; and (4) to develop an alternative approach to active correction (Adaptive Optics) that utilizes full post-processing.